U.S.-France Cooperative Research: Study of Physico-Chemical and Electrical Properties of Ferroelectric Thin Films

This three-year award supports U.S.-France cooperative research in condensed matter physics between Angus Kingon at North Carolina State University and Bernard Agius at the University of Paris, Orsay. The objective of their research is to study the use of ferroelectric thin films in advanced technologies. They will investigate materials integration of thin films processing with regard to use in thin-film devices, and the impact of microstructure on fundamental properties. This project brings together complementary U.S. and French expertise in thin film growth and characterization. Ferroelectric films have potential applications in capacitor materials, filters, pressure sensors and other devices.